Mathematical Sciences: Algebraic Methods in Systems Theory

9610389 Rosenthal This project addresses a number of issues in systems theory and coding theory. The main objectives of the proposal are: 1. A unified algebraic theory for general matrix extension problems which, in special situations, covers results of the pole placement and interpolation literature on one side and results on matrix extensions on the other side. 2. An extension of the Hermann-Martin correspondence well known for one dimensional systems to the situation of multidimensional systems. 3. An optimal control theory for linear systems over finite fields which will result in methods for constructing convolutional codes with large free distance, low complexity and simple decoding schemes. Convolutional codes are used in the data transmission over phone lines, in the area of wireless communication and in the transmission of pictures from deep space. Feedback controllers are implemented in many different devices such as aircraft, robots and chemical processes to mention a few. From a mathematical point of view linear feedback controllers and convolutional encoders are governed by similar set of equations. It is the goal of the proposed research to develop a mathematical theory which will lead to improved design techniques for feedback controllers of various type as well as more efficient convolutional encoders and decoders.